Theory for Innovative Cosmological Tests of Dark Matter-baryon Interactions

A wide range of astronomical observations have established that most of the matter in the Universe consists of an invisible substance known as dark matter. Yet, despite decades of experimental and theoretical efforts, the fundamental nature of dark matter remains one of the greatest mysteries in modern science. Dark matter may consist of new elementary or composite particles that interact weakly with ordinary matter or with one another. This award will develop new ways to search for such interactions using observations of the cosmic microwave background, the oldest light in the Universe. These cosmological searches complement laboratory experiments and are particularly valuable for studying dark matter particles that may be too light or too weakly interacting to be detected through conventional methods. This research advances the national interest by promoting the progress of science in one of its most fundamental directions: understanding the nature and properties of the matter that constitutes most of the mass in the Universe. The project’s Intellectual Merit lies in the development of new theoretical and computational tools that will broaden the range of dark matter properties accessible to cosmological observations and enable new, more sensitive tests of dark matter interactions. The project will also have significant Broader Impacts through the training and mentoring of graduate and undergraduate students, the incorporation of research results into university courses, the public release of computational tools, collaboration with the New York University Science and Technology Entry Program, and a series of public lectures designed to increase scientific literacy in cosmology and physics.

More technically, Professor Ali-Haïmoud will pursue two complementary approaches to developing higher-sensitivity cosmological probes of dark matter interactions. First, he will expand the Boltzmann–Fokker–Planck formalism he previously introduced to describe dark matter–baryon interactions and dark matter self-interactions simultaneously and self-consistently, including self-interactions of arbitrary strength. He will implement this framework in the publicly available Boltzmann code CLASS, replacing and superseding the highly simplified ideal-thermal-fluid approximation currently used to derive cosmological constraints. Second, he will calculate a novel signature of dark matter–baryon scattering: non-Gaussian patterns in the cosmic microwave background generated by the nonlinear dependence of the dark matter–baryon momentum-exchange rate on local physical conditions. For both projects, Professor Ali-Haïmoud will assess the detection prospects of current cosmic microwave background experiments, including Planck, the Atacama Cosmology Telescope, and the South Pole Telescope, and forecast the sensitivity of upcoming experiments such as the Simons Observatory. The project will also determine the signatures of dark matter–baryon interactions in the matter power spectrum, enabling complementary tests using the distribution of matter over a broad range of cosmic scales. The resulting theoretical and computational tools will support the interpretation of high-resolution cosmological observations and help maximize their potential to reveal previously unknown properties of dark matter.